Topics at the Intersection of Geometry, Topology and Group Theory

ABSTRACT FOR NSF PROPOSAL 0604633

There are three main components to this project. First,
Farb will continue to investigate mapping class groups and
the moduli space of Riemann surfaces. This topic lies at
the intersection of many areas of mathematics, from
algebraic geometry to low-dimensional topology to string
theory to geometric group theory. Farb will continue to
apply methods from discrete subgroups of Lie groups in
order to understand these objects, especially the "Torelli
group", which is a part of the oldest but least understood
part of the theory. Symmetry is a core idea in
mathematics. Farb will continue his work with S.
Weinberger on the broad program of classifying all spaces
(that is Riemannian manifolds) with symmetry. The ideas
used so far in this work have included the theories of
harmonic maps, large-scale geometry, and transformation
groups. In a third project, Farb will continue his work
with C. Hruska on bringing together techniques and ideas
from geometric group theory with those from discrete
subgroups of Lie groups in order to build the theory of
lattices in automorphism groups of 2-complexes. This is a
2-dimensional extension of Bass-Lubotzky's theory of tree
lattices, where wild new phenomena can occur. Throughout
each of the projects just described, Farb will continue to
work with and mentor many young students and researchers.